Second Africa-United States International Conference on Manufacturing Technology to be held August 8-11, 1994 in Lagos, Nigeria

9413919 Nnaji This project is an international Africa-United States manufacturing and design conference. It will focus on the related manufacturing science and technology, product design for intelligent manufacturing, and university/industry/government cooperative programs for the future. It builds on the work of a previous conference on the same subject areas. The conference will provide a forum for the exchange of knowledge, experience and information regarding the recent trends and developments related to the intelligent factories of the future. Researchers from North America and Africa will share their insights on the related technologies.